SBIR Phase I: Multi-functional Nanoamendments for Enhanced Anaerobic Bioremediation

This SBIR project proposes to develop a system for detoxifying contaminated groundwater using in-situ anaerobic bioremediation. The focus of the project will be the ability of multi-functional nano-powders to produce groundwater that supports effective in-situ anaerobic bioremediation. This improved method would use organic bio-amendments applied with anaerobic microbes to contaminated groundwater.

The broader/commercial impacts of the proposed project will be to treat contaminated groundwater in a more cost-effective manner. Halogenated hydrocarbons, perchlorate, and other toxic substances contaminate groundwater and threaten public water supplies. The slow natural attenuation of TCE and other toxic chemicals makes effective in-situ treatment that much more important. In-situ methods, where the contaminants are consumed underground, is lower cost than pump and treat options and is a more complete remediation solution.